SBIR Phase I: Low-Cost and Scalable Creation of Genomic Databases with Long-Read Next-Generation Sequencing

The broader impact of this Small Business Innovation Research (SBIR) Phase I project will be the development and validation of a new approach to facilitate population-level access to genetic information contained in the human genome currently inaccessible. Importantly, it can drive a significant reduction in time and cost needed to scan the genome of patients who suffer from a specific disease, from years to months, accelerating discovery cycles and producing data with higher resolution to develop better diagnostic tools or treatments.

The proposed project describes a novel approach for high-resolution human genome sequencing using unique computational algorithms that facilitate detection of diverse types of genetic variation using a pangenomics approach, implemented directly on raw sequencing data. Genetic variation inadequately captured by short-read Next Generation Sequencing, such as large chromosomal rearrangements, long tandem repeats, or long-range haplotype configurations, represent a significant gap in knowledge. In the last few years, maturation of long-read Next Generation Sequencing (NGS) technologies have begun uncovering the role of Structural Variants (SVs) and haplotypes in disease. However, the main limitation to expand implementation of long-read NGS is the cost of generating sufficient sequencing coverage to compensate for the relatively high natural error rate. The proposed technology can address this issue directly and facilitate cost-effective long-read sequencing of human genomes at scale.